Ultra III: Implementing a Scalable Shared-Memory Multiprocessor

Gottlieb This project is building and evaluating ULTRA, a MIMD multiprocessor, using combining switches in the processor-memory interface. The supplement allows completion of an enhancement begun in FY 1992. In the enhanced ULTRA, first generation combining switches are being replaced by more modern switches built by NCR.